REU Site: Summer REU Program in Marine Science at the University of Delaware

The University of Delaware will host a Research Experiences for Undergraduates (REU) site located at the College of Earth, Ocean, and Environment (CEOE) campus in Lewes, DE. The program supports 10 students who conduct independent research projects during a 10-week summer program that includes seminars in marine sciences, field trips and a series of workshops. Science seminars cover a wide range of marine science topics, and workshops focus on professional development issues such as analyzing complex data sets, how to write scientific papers, life in graduate school, and career paths in marine sciences. At the end of the summer, interns present their results during a mini-symposium and write up their results in the form of a regular scientific paper.